Synthesis and Characterization of Bipolar Phospholipids for Use as Organizing Media in Spectrofluorometric Analysis

9314935 Neal This three-year continuing grant in the Analytical and Surface Chemistry Program to Professor Sharon Neal at the University of California at Riverside supports an investigation of the synthesis and characterization of unique bipolar lipids. These phospholipids will be incorporated into monolayer vesicles as specific analytical reagents designed to sequester nonelectrolyte solutes in a controlled environment, for subsequent characterization by fluorescence spectroscopy. The vesicles constructed from these bipolar lipids will be studied using steady state, lifetime, and polarization luminescence spectroscopy, as well as classical and dynamic light scattering. With these techniques, the location of the solute within the vesicle will be elucidated. By varying the nature of the bipolar lipid used to make the vesicles, the effect of pocket size and vesicle capacity will be determined. The long term goal of this research is the development of analytical methodology that is sufficiently selective to accomplish the analysis of complex, biologically relevant samples through selective complexation within vesicles using multiparametric, microenvironment- sensitive spectroscopy. %%% This research aims to design new lipid molecules that will enable a particular analyte to be trapped for subsequent analysis. These bipolar lipids consist of two polar ends, and a nonpolar interior. These molecules spontaneously assemble into spherical assemblies, called vesicles. The chemical characteristics of the lipids are tailored to enclose specific molecules within the vesicle. This will provide a highly selective analysis method for compounds of biological or environmental significance. One difficulty in trying to identify and quantify chemical compounds in many real systems is that the responses obtained from the instrument are susceptible to interferences from numerous interfering compounds. The research undertaken by Professor Neal shows real promise for solving t his fundamental analysis problem. ***